Knots and 3-Manifolds

Abstract

Award: DMS-0104126
Principal Investigator: Abigail A. Thompson

The focus of the proposed research is the study of knots and
3-dimensional spaces. We will examine questions about surgery on
knots, knotting of graphs in 3-space dimensional spaces, and
Heegaard decompositions of 3-manifolds. We describe three
specific goals and their connections to some of the basic
questions in the field. The first goal is to develop the tools
and techniques of multi-parameter thin position and sweep-outs so
that they can be used to tackle some of the long-standing
problems in knot theory and 3-manifold theory. A second is to
extend work of the proposer and M. Scharlemann on unknotted
planar graphs in the 3-sphere to a more general setting.
Finally, we aim to obtain a clearer understanding of general
questions about 3-manifolds by obtaining a deeper understanding
of 3-manifolds of Heegaard genus two. We will examine specific
questions about tunnel number one knots, special cases of larger
questions about what genus two manifolds can be obtained by
surgery on a knot in the 3-sphere, which of these manifolds
contain immersed surfaces with injective fundamental groups, and
how information from the Heegaard diagrams of these manifolds
translates into geometric and algebraic information about the
manifold itself.

We live in what is apparently a universe with three spatial
dimensions. Exploring the possible forms that our universe might
have is not only a deep problem for physicists but also for
mathematicians. Different mathematical possibilities lead to
very different expected physical properties. As an example, we
do do not know if, were we able to program a very fast rocket to
go "straight" into space, it would eventually return to its
starting point, like a ship on the surface of the earth, or if it
would continue to travel away from us forever. There are an
infinite number of possibilities for the shape of the universe.
This project proposes to explore some of them using the
techniques of low-dimensional topology and knot theory.